Prefix-Free Vertex Coloring for Channel Assignment in OVSF-CDMA Wireless Ad Hoc Networks

Orthogonal variable spreading factor (OVSF) code provides a means of
support of variable rate data service at low hardware cost in CDMA
wireless systems. In an OVSF-CDMA wireless ad hoc network, a code
assignment has to be conflict-free, i.e., two nodes can be assigned the
same codeword or two non-orthogonal codewords if and only if neither of
them is within the transmission range of the other and no other node is
located in the intersection of their transmission ranges. In this
proposal, we propose to study various optimization problems on
conflict-free channel assignments in OVSF-CDMA wireless ad hoc networks.
The proposed studies include conflict-free channel assignment for maximum
throughput, for maximum bottleneck rate, and for both at the same time,
and transmission scheduling for minimum schedule duration when all nodes
have specified transmission rate. All these optimization problems are
expected to be NP-hard even when all nodes have the uniform transmission
radii. We will prove the NP-hardness of these problems and develop
provably good polynomial-time approximation algorithms. These studies are
both theoretical challenging and practical important for the deployment of
OVSF-CDMA wireless ad hoc networks. Furthermore, since wireless ad hoc
networks support applications related to disaster relief, public event
coordination, and military and law enforcement operations, increasing
their throughput and communication bottleneck has vast societal impact.